Capital Controls and Their Impact on Stabilization Policy and Welfare

This project deals with four aspects of the relationship among government controls over international capital movements, the effectiveness of stabilization policy, and world welfare. The first research area is concerned with current and proposed measures to liberalize capital movements within the European Monetary System of fixed exchange rates, and asks whether such liberalization is consistent with the periodic realignments seen so far. The second area investigates the possibility that public-finance policy can lead to self-justifying capital flight, in which case a nationalistic argument favoring capital controls might be made. The third area of work examines the effect of capital controls on a government's ability to obtain seigniorage revenues from its economy through use of an inflation tax on money holders. In particular, the impact of controls on the economy may be of central importance and have a major bearing on better understanding the causes of inflation. The final topic looks at empirical measures of the effects of international financial integration and of the gains from international risk sharing. The underlying theme of this project is the control of international capital movements. Increasingly, the integration of national financial markets has raised concerns about economic stability, policy effectiveness, and the supervision of financial institutions with offshore operations. Some commentators have recommended a substantial retreat from the international financial liberalization that has been occurring since the early 1970's. This project is important because it involves the development of theoretical models and empirical evidence that would help in assessing the costs and benefits of adopting various capital controls.